Acquisition of an X-ray Diffractometer with CCD Detector

This award from the Chemistry Research Instrumentation and Facilities Program (CRIF) and the Office of Multidisciplinary Activities (OMA) will help the Department of Chemistry at Northwestern University acquire an X-ray diffractometer equipped with a CCD detector. The equipment will enhance research in a number of on-going projects involving electron transfer in inorganic systems, solid state catalysts and other material, structural inorganic chemistry, organometallic chemistry, metal cluster formation, and bioinorganic chemistry and metalloproteins. The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.